2018 Oceanographic Instrumentation: R/V Atlantic Explorer

A request is made to fund Oceanographic Instrumentation on the R/V Atlantic Explorer, a 168’ general purpose research vessel owned and operated by Bermuda Institute of Ocean Science (BIOS) as part of the University-National Oceanographic Laboratory System. BIOS is a U.S. 501 (c) 3 and 509 (a) not-for-profit research and educational institution incorporated in the state of New York, and geographically located on the Island of Bermuda. The mission of the ship is to support funded science research throughout the Central Atlantic but specifically work in support of the Bermuda Atlantic Time-series (BATS) program. RV Atlantic Explorer had 120 days funded in 2017, all but 7 of which were for NSF. In 2018, the vessel is scheduled to sail 183 days with 178 (98%) of them funded by NSF. With this proposal, BIOS provides technical descriptions and rationale for the acquisition of the following Instrumentation:

Upgrade for CTD Cable $20,954
Data collection upgrade $26,107
Technician Workstations $11,761
Internet accessibility in port $6,398
Video over IP system $7,826
Rack expansion $5,782
$78,828

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.